Mathematical Sciences: Problems on Group Representations

The principal investigator will investigate the theory of modular representation of finite groups of Lie type for primes not equal to the characteristic. She will also work on two specific problems on Green functions and the related Hall-Littlewood functions: a group-theoretic interpretation of some symmetric functions in two variables introduced by Macdonald, and a Murnaghan-Nakayama type formula for Green functions of classical groups. This research is in the general area of the representation theory of finite groups of Lie type. One of the main applications of group theory to other mathematical and scientific fields is in representation theory.